Pictoral Priming and Age Changes in the Visual Information Processing Systems

The investigator proposes to study pictorial priming by using a task previously investigated and published by him. In general, the subject under study will be offered primes in a series of whole pictures and they will be tested using a series of degraded pictures as target items. The subject will receive three identical primes, three similar primes and three pictures that have not been presented during the priming portion of the task. Male and female subjects and the picture feature types contour will be used in the study. The pictures a subject receives during the target series will be either identical in spatial orientation to the prime offered in the first portion of the task or will be a mirror-image in terms of spatial orientation. The subjects performance will be recorded in terms of time to solve the degraded form and the number of keystrokes to solve the degraded form. The investigator hopes to determine if performance is affected by the slowing of the visual system that might occur with aging.